Conference: Cleveland Cell Biology Symposium: Regulation of Nuclear Functions to be held in Cleveland, Ohio

The cell biology community at Case Western Reserve University will organize a two-day meeting that focuses on regulation of nuclear function. Topics include structure and biogenesis of the nuclear pore complex, membrane-associated factors that regulate transport, and transport of proteins or RNAs into and out of the nucleus. Presentations will encourage interaction between students and invited speakers.